Development of an Outdoor Seawater Facility to Increase Research Capabilities

The Chesapeake Biological Laboratory (CBL) will be suggested to construct an Outdoor Seawater Facility to study the ecology, toxicology, energetics, and biochemistry of organisms from a wide spectrum of taxa (bacteria, algae, invertebrates and fishes). The facility will enhance current research initiatives at CBL in trophic transfers of contaminants, trophic and community dynamics, migration, and recruitment. These initiatives depend upon both laboratory and field approaches which often cannot be reconciled because of scaling considerations. The outdoor Seawater Facility will provide a critical mesocosm-scale level to complement current CBL strengths in laboratory and field investigations. The Outdoor Seawater Facility will be available to CEES scientists, graduate students, and visiting scientists in several disciplines. The facility comprises a 167-sq. meter cement pad with seawater plumbing, drainage, portable canopies, and flexible-design tanks and raceways. The facility will significantly enhance the range of research and training programs at CBL and will also be a unique facility in the region available to visiting/collaborating investigators. When completed, the facility will be a major contributor to the success of CBL's mission in its three programmatic areas: Ecosystem Studies, Fisheries Science/Ecology, and Environment Chemistry/Toxicology.